Value Focused Thinking: The Role of Values in Forming Decision Options

With any decision problem, the intent is to select the best alternative among those available or to create alternatives better than those readily apparent. The concepts of best and better are based upon preferences or values. It is the existence of values for the consequences of the decision which is the basis for an interest in that decision problem. If a decision problem is complex, almost all analysts argue that a model will lend insight to understanding complexity and to making better decisions. To gain the insight available from such a model, it is necessary to focus on the basis for the complexity in the problem. Conflicting and intertwined values are often a basis for such complexity. The traditional rational decision making model is primarily concerned with the problem of choice among a known fixed set of alternatives. It has rarely considered the process by which alternatives or options are developed or the interaction of values in this process. This proposal investigates basic problems in developing and using models of values. Specifically, it focuses on identifying and structuring values, developing constructed value indices, and creating value driven alternatives. The research will be conducted within the context of four major national decision problems. It should result in a new approach in the development of normative decision theory as well as in the development of new operational decision support procedures for difficult complex decisions.